Scalable Enterprise Systems: A User-Oriented Framework for Process and Performance Modeling of Enterprise Systems

This grant provides funding for the design, development, and testing of a user-oriented framework for process and performance modeling of enterprise systems. This framework will integrate methods and technologies from the areas of engineering, process modeling, accounting, and distributed computing. Specifically, the framework will integrate Petri net theory, graphical process modeling techniques, activity-based management concepts, and the distributed computing paradigm of the Internet. At the core of the framework is a set of graphical modeling constructs, a set of formal Petri net-based representation constructs, and a mapping scheme between the graphical models and Petri net representations. A proof-of-concept Web-based software prototype of the framework will be developed using XML and object-oriented technologies.

The linkage between Petri net theory and graphical modeling techniques in a Web context represents a corner stone in the establishment of a theoretical foundation for user-oriented enterprise process modeling. The research will bridge two distinct worlds, engineering and business, and will help in the design, control, improvement, and measurement of enterprise-wide processes. In summary, the results of this project will provide a theoretical framework, which will further stimulate research and development of a new generation of business process and performance modeling tools that are user-oriented, graphical, scalable, and Web-based -- thereby impacting professional practice and stimulating business improvement.